1997 Gordon Research Conference on Catalysis

ABSTRACT - CTS 9703899 Vincent A. Durante Gordon Research Conferences Support is provided to assist graduate and post-doctoral students, as well as junior faculty, who are attending the 1997 Gordon Research Conference on Catalysis, to be held at Plymouth State College, Plymouth, NH, on July 20-25, 1997.